An Investigation of Nonuniform and Localized Deformation: Effects of Anisotropy Material Rotation and Strain Gradients

This Research Initiation Award is for the study of the localization of deformation and softening that occurs in many materials. THis localization occurs in many applications of concrete and in penetration problems. The main aim of the proposed study is to develop the appropriate constitutive quations, especially those involving large rotations.